Collaborative Research: Synthesis and Investigation of Gallium Nitride Based Quantum Dots

The principal investigators propose to study quantum dots (QDs) in the group III-nitride
materials system. The objectives are three-fold: 1) to improve the quality of the material
by using the dot layers to decouple the active layers of structure from the substrate; 2) to
produce a QD laser that has a lower threshold and is more efficient than present nitride
lasers; and 3) to produce efficient nitride light emitting diodes (LEDs) that span the
electromagnetic spectrum from the blue to the red and that can be made to emit white
light. Both of the PIs are carrying out extensive research in the nitrides, and this project
will be integral part of their programs. The activity will be largely crystal growth in
nature, but work on structure and device processing and materials characterization will
also be carried out. Both molecular beam epitaxy (MBE) and metal organic chemical
vapor deposition (MOCVD) will be used. This is one of the few projects in the world
where both techniques are employed by one research group for the nitrides and will give
the researchers the flexibility to choose to best method for each part of the growth
process. The PIs propose to produce the dots by two novel techniques which they expect
will produce more uniform dots. The first is a crystal growth technique whereby the dot
layer is grown pseudomorphically on a nitride layer of smaller lattice constant at low
enough temperature so that two dimensional growth occurs. The layer is then annealed to
form a layer of self-assembled dots. In the second technique, the growth is stopped just
below the dot-forming layer. The sample is then removed from the growth apparatus. It
is patterned on a nanoscale with a uniformly spaced array of dimples or hillocks. The
sample is then returned to the growth apparatus, and the growth is continued. The pattern
serves as a template to form the dots and helps make them more uniform. Partial laser
structures will be fabricated from samples made by both methods that will permit the
determination of whether the dot size is uniform enough to produce a narrower
spontaneous linewidth and, hence, a lower threshold, improved laser. Other
characterization measurements, including photoluminescence, cathodoluminescence,
atomic force microscopy (AFM), and transmission electron microscopy (TEM) will be
carried out. Single color LEDs from blue to red and white LEDs will fabricated and
characterized.